Engineering Research Deployment Teaching Initiative: Deployment of Genetic Algorithms for Scheduling and Optimization

9308432 Bean Through support by NSF and several companies, the researchers have developed, over the past year, two powerful genetic-based codes for solving jobshop scheduling problems and bounded variable integer programs. In a matter of minutes one can solve problems such as 400 job, eight machine, total tardiness scheduling problems, or 5000 variable multiple-choice integer programs to within two to three percent of the best known solutions. The codes are currently in research prototype form. The researchers will refine and document the codes during the summer of 1993 so that they can be deployed in three manners: given to students in the courses IOE 472 (Introduction to Operations Research, undergraduate), IOE 5443 ( Scheduling, master's) and IOE 614 (Integer Programming, Ph.D.) ; give them to representatives of MasPar Computer and General Motors who will use them on current manufacturing projects; and place them on an ftp bulletin board set up by the genetic algorithm community.